2009 Inter-Science of Learning Centers (iSLC) Conference, February 5-7, 2009 at University of Washington

ABSTRACT

Proposal number: 0850774
PI: John Bransford
Title: 2009 Inter-Science of Learning Centers (iSLC) Conference

The 2009 Inter-Science of Learning Centers (iSLC) Conference is the second annual conference for students and postdoctoral fellows from the six NSF Science of Learning Centers (SLCs). This is a venue for participants to meet at one of the SLCs on a rotating basis, to discuss common research interests, methodologies, challenges and career development. The goals are to facilitate information exchange, collaborative synergies and sharing of resources (people, ideas and tools) between the centers. The 2009 meeting will be hosted by the Learning in Informal and Formal Environments (LIFE) Center at the University of Washington, and attended by approximately 90 students and postdoctoral fellows. This annual iSLC Conference is a step towards breaking down disciplinary barriers and creating a common framework for the scientific study of learning.